Heat Transfer in Thin Semiconductor Film Melting and Recry- stallization

Thin-film heat treatment by means of lasers is of growing importance to current microchip technology because it enables the fabrication of novel electronic devices of high performance and improved circuit packing density. In particular, the use of lasers to melt and recrystallize thin semiconductor layers has attracted great research interest due to its potential for improving the electrical properties of the semiconductor. This proposal presents a three-prong approach to the study of the heat transfer of radiatively induced crystal growth in thin semiconductor films: i. Measurement of thin film optical properties at high temperatures up to the melting point; ii. Development of nonintrusive experimental methods for in-situ temperature measurement based on surface radiative data; iii. Construction of numerical algorithms for simulation of the associated phase change process. The general goal of the program is to understand an quantify the effects of coupled light absorption and thermal diffusion in polycrystalline thin films. The proposed program is expected to make a substantial contribution to the knowledge base on a very important but not adequately understood solidification/melting problem and could lead to important process control technology. In addition, this work will provide new quantitative information on little known properties of thin films which may lead to new developments in the semiconductor industry.